REU Site: Aquatic Sciences, Engineering, and Technology (ASET) REU at Clarkson University

Clarkson University in Potsdam, New York will host a new Research Experiences for Undergraduates (REU) program called Aquatic Science, Engineering, and Technology (ASET). The program will bring ten undergraduates to Clarkson each summer for a ten-week research experience during the summers of 2023-2025. ASET will focus on the Great Lakes-St. Lawrence River watershed environmental research. REU interns will have opportunities to conduct research in a range of disciplines organized in broad categories of 1) Aquatic Natural Sciences, 2) Aquatic Sustainability Sciences and 3) Aquatic Resource Engineering. The ASET Scholars’ research experiences will address high-need and emerging areas in aquatic natural and sustainability sciences and engineering with an integrative learning community through training, research, seminars, professional development, and social activities. The program includes a programmatic emphasis on Indigenous Traditional Ecological Knowledge of the Great Lakes-St. Lawrence River. Student recruitment will develop cohorts that are diverse in perspective, discipline, and demographics. The program goals are to 1) develop a Scholar’s research experience; 2) develop a diverse, supportive, and inclusive learning community; 3) strengthen Scholars’ skills to create and evaluate communication products; 4) foster Scholars’ evaluation of the ethical and legal aspects in research; 5) validate the Scholars' academic path and facilitate degree completion in a STEM-related field; and 6) encourage Scholars to choose a career in STEM in aquatics.

ASET will expose students to a broad spectrum of aquatic sciences, engineering, and technology topics providing students with exposure to deep disciplinary perspectives in a research environment, while immersing them in an inclusive interdisciplinary and trans-disciplinary learning environment. Students will have the opportunity to conduct research with faculty whose work focuses on topics such as bioanalytical chemistry, electrochemistry, biosensing and environmental nanotechnology; mapping landscapes with ground penetrating radar, electrical resistivity and seismic reflection; the fate and transport of emerging contaminants in the Great Lakes; ecohydraulics, harmful algae blooms in aquatic systems, as well as other aquatic science related topics.